Acquisition of an HPLC System

High Pressure Liquid Chromatography allows the quantitative analysis of many biologically important materials like derivatized amino acids, oligopeptides, phenolics, polar terpenoids, and coumarin allelochemicals that are too heavy for gas chromatographic separation. The proposed HPLC system will support the research of at least five faculty lab groups in the new University of Minnesota Ecology Building, including investigations of plant/herbivore interactions and plant secondary products.